CEDAR: Modeling Studies with the NCAR Thermosphere/Ionosphere GCMS

This proposal is for the continuation of thermospheric tidal studies being conducted with the NCAR thermosphere/ionosphere general circulated models. The proposed project addresses detailed understanding of the lower thermosphere global dynamics and mesosphere/thermosphere coupling. The investigator plans to conduct and disseminate the results of NCAR model simulations in support of CEDAR campaigns and working groups. Moreover, she will continue to refine, update, and validate the theoretical models.